Participant Support for the Symposium on Hydrodynamic Diffusion of Suspended Particles

9421753 R. Davis It is proposed to provide partial travel support to ten young US researchers and to several invited speakers to an international symposium focused on the theory and applications of hydrodynamic diffusion of suspended particles. The meeting will be co-sponsored by the International Union of Theoretical and Applied Mechanics (IUTAM). Hydrodynamic diffusion refer to the fluctuating motion of particles which in a dispersion due to multiparticle interactions. This phenomenon has received an increased attention in the last decade. This is the first symposium dedicated entirely to this subject, with the objective to review the current research, identify research trends and new areas od relevance in applications. The participants are from different research fields, such as rheology, fluidization, granular flow, and from a variety of disciplines (physics, applied mathematics, chemical, mechanical and civil engineering). ***